GOALI: Membrane Aerated Biofilms - Membrane Module Development and Biofilm Thickness Control

0331953 Semmens This study will focus on improving the basic understanding of MAB behavior and developing membranes appropriate for use in full-scale treatment systems. Tasks include (1) manufacture and testing of different membranes that are resistant to wetting and provide biofilm thickness control, (2) exploration of the effect of shear flow and water quality on biofilm detachment and sloughing, (3) characterization of the adhesion of biofilms to different membranes and the cohesive strength of biofilms under different operating conditions using atomic force microscopy, and (4) exploration of the effect of shear flow and water quality on surface morphology and the structure of the MAB using both atomic force microscopy and epifluorescent microscopy. Intellectual Merit: These experiments will demonstrate how biofilm thickness, composition- structure, sloughing patterns, morphology, and cohesive and adhesive strength varies when biofilms grow on different membrane materials and under different operating conditions. This information can be used to define appropriate membrane material choices and sloughing procedures to best control biofilm thickness and thereby maximize reactor performance under a variety of likely operating conditions. It can also be incorporated into biofilm models to improve their predictive capabilities.